CRCD: Collaborative Case-Based Learning in Engineering Ethics

This award provides funding for a three-year, Combined Research-Curriculum Development (CRCD) program, entitled "Collaborative Case-Based Learning in Engineering Ethics," at the University of Pittsburgh, under the direction of Dr. Kevin D. Ashley. The overall objective of this project is to design, build, field and evaluate the COM-PETE (Collaborative On-line Methodology for Professional Ethics Tutoring Environment) program which will support students in collaboratively analyzing and deliberating about professional ethics problems.